Reinforcing Concepts in Chemistry Through FT-NMR Spectroscopy

The acquisition of a Fourier-transform nuclear magnetic resonance (FT-NMR) spectrometer enables the university to reinforce experimentally vital concepts and principles of theoretical chemistry. Students are guided through hands-on qualitative and quantitative NMR techniques using the vast potential of modern NMR spectroscopy. These are integrated with computational and other instrumental methods. Such a dynamic investigative learning experience clarifies theoretical concepts and stimulates an interest in chemistry. The equipment is integrated throughout the chemistry curriculum, thus benefiting students far beyond chemistry majors. It also facilitates the addition of a laboratory component in biochemistry. These benefits can be extended to the faculty and students of five nearby institutions, thus serving the entire region of south Georgia. Previously, such powerful analytical techniques have been inaccessible to students and to the students of the neighboring institutions. The project is significant because students understand chemical concepts best and are inspired to delve deeper into the discovery process through active experimental learning. *